NSF Young Scholars Program at Northeastern University

9452701 Duggan Northeastern University will initiate a six-week, commuter, Young Scholars Project in engineering for 26 students entering grades 11 and 12. The program provides classroom instructions, field trips, hands-on laboratory activities, and an opportunity for students to have significant laboratory research experiences by engaging in the state-of-the-art research projects under the supervision of scientists and engineers in research laboratories in the College of Engineering at Northeastern University.